Cytoskeletal Systems and Calcium Pulses, Waves, and Gradients in Ooplasmic Segregation and Cytokinesis in the Egg of the Medaka (Oryzias latipes), a Teleost

9316125 Fluck The PI and his students will continue to study the roles of cytoskeletal systems and cytosolic calcium pulses, waves, and gradients in ooplasmic movements and cytokinesis in the medaka egg. The objectives of the research are: a) to describe the spatial and temporal organization of microtubules during ooplasmic segregation; b) to determine whether microtubules and a microtubule-associated motor (kinesin) are involved in the segregation of a specific class of cytoplasmic organelles (oil droplets) toward the vegetal pole of the cell, c) to determine whether the artificial induction of a cytosolic calcium gradient will organize ooplasmic segregation, d) to determine whether there is a causal relationship between zones of elevated calcium and microtubule organization, e) to determine whether calcium pulses, waves, or gradients accompany specific mitotic and cytokinetic events, and f) to determine whether dissipation of cytosolic calcium gradients near the developing cleavage furrow will inhibit cytokinesis. %%% Dr. Fluck and his students will continue to study the mechanisms by which structural rearrangements and cell division take place in fertilized eggs. The egg of the medaka fish provide an excellent system for these studies. In particular they will study the roles of the internal skeletal structures of cells (cytoskeletal systems) and pulses, waves and gradients of intracellular calcium in regulating the movements of the egg's internal structure, and in the division of the egg into two daughter cells. The results of these studies will give us important new insight into the physiological and structural bases of these two critical events in the early development of a fertilized egg. ***